International Research Fellow Awards Program: Establishing the Complexity of p-partite Tournament Isomorphism

9600356 Wolf The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a seven-month postdoctoral research visit which will support Dr. Marty Wolf of Mankato State University to work with Dr. Brendan McKay at the Australian National University in Canberra, Australia. The topic of this research is to establish the complexity of p-partite tournament isomorphism. The primary goal is to determine a tighter analysis of the complexity of this open problem in graph theory. There is an interest in studying this complexity on a variety of combinatorial objects because it will help develop a deeper understanding of what makes the isomorphism problem difficult and the relative complexity of combinatorial objects. This project is also significant because some problems found in neural network algorithms result in networks where the underlying structure is a p-partite tournament, and Dr. Wolf and Dr. McKay will explore the application of convex subsets to try and overcome these problems. ***